Computer Integrated Manufacturing Laboratory

This project supports a new undergraduate program in Manufacturing Systems Engineering at this institution and the capstone course, Computer Integrated Manufacturing (CIM). The new lab consists of several pieces of flexible manufacturing equipment (numerically controlled machine tools, robots, automated guided vehicles) and integrated computing equipment. The CIM laboratory is networked to an existing Computer Aided Design System so that students experience a complete production cycle (from product design, to manufacturing, to assembly) in a "factory of the future" computerized environment. This award is being matched by an equal sum from the grantee.